Copula Contraction and Absence in Vernacular Black English, Mesolectal Creole English and Other Varieties

ABSTRACT The objective of this project is to produce a detailed analysis of constraints on copula contraction and absence in: (1) Vernacular Black English (VBE), as spoken in East Palo Alto, California; (2) Mesolectal Creole English (MCE), as spoken in Guyana, Barbados, Jamaica, and the South Carolina Sea Islands; (3) Other varieties like Russian, Twi, and child language which display syntactically conditioned copula variation and absence. The analysis of (1) and (2) will employ quantitative methods and the variable rule program to isolate constraint effects in recorded casual speech samples. The VBE sample will include thirty-two speakers, finely age-stratified to permit a close view of age-grading and change in progress. The MCE sample will also include thirty-two speakers, eight from each of the targeted areas. The analysis of (3), primarily library-based, will explore the extent to which copula variability patterns in VBE and MCE have broader typological parallels and explanations. The significance of this project is that it will overcome a number of limitations in existing work on copula variability in VBE and MCE which restrict the validity of recent attempts to compare them and resolve the controversial creole origins issue of VBE and related varieties like Samana English. %%% The project consists of a detailed, quantitative study of certain aspects of the grammar of the language of urban American black people (VBE), and of creole speakers in the Caribbean and in South Carolina (MCE), and the variations in their speech styles. The research is motivated by, and addresses, some important theoretical issues which have arisen with respect to the historical origins of VBE, and to its current status in relation to standard American English. The project should result in significant advances in our understanding of VBE and the changes it is undergoing.